Research Experience for Undergraduates in Computer Vision

This project is a continuation of a previously funded REU- SITE proposal. It is a cooperative venture among 3 Florida Universities designed to recruit undergraduate students to engage in research projects at these institutions. In all, 12 students, including a large percentage of women and minorities, will be selected to work with 3 principal investigators from the University of Central Florida, the University of South Florida and Stetson University. The focus of the research will be on computer vision. After a general introduction to material on computer vision, students will be asked to select an individual research project from those proposed by the faculty. Specific areas of research include dynamic scene analysis, recognition systems, and motion trajectories.